Nano-Photonics Laboratory

As nanotechnology grows it is imperative for developing engineers/scientists to receive an education that includes cutting-edge interdisciplinary topics, including advanced topics and concepts. This project is addressing these goals by developing an interdisciplinary Nanophotonics hands-on laboratory course (with embedded introductory lectures) at the upper-class undergraduate level. The project introduces the concepts of nanophotonics with an inter-disciplinary team of faculty from the College of Engineering by developing and co-teaching a sequence of junior level courses which tie into the College of Engineering's research-based Senior Design Projects. With the addition of this program, upper-level undergraduates who are excited by the introduction to nanotechnology at the freshman and sophomore levels now have an opportunity to experience nanotechnology in a hands-on laboratory experience. This project creates a continuum of nanotechnology educational opportunities from the freshman year through the Senior Capstone experience.